Representation of Galois groups and descent in algebraic K-theory

DMS-0104162
Gunnar Carlsson

This project includes several different directions of
research. Carlsson will study a homotopy theoretic model
he has constructed for the algebraic K-theory spectrum of
a field, which is built out of the representation theory of
the absolute Galois group of the field. He will try to prove
that the model is indeed equivalent to the K-theory of the
field, as well as to work out the consequences of this result
for the Quillen-Lichtenbaum conjectures and the relationship
between this result and the Bloch-Kato conjecture. He will
also investigate potential applications of algebraic topology
in high dimensional data analysis. He expects to improve
software which he and V. De Silva have developed for homology computation, with the goal of identifying features such as
singular points as well as global topology for data sets of
dimension greater than three. He also plans to study homotopy
theoretic issues which arise in computational questions,
relating to sampling subcomplexes from large simplicial
complexes. Kiem plans to compute intersection numbers for
singular moduli spaces of curves. This is an important
problem since the intersection numbers in this case are
related to well-known geometric invariants, such as the
Casson invariant.

One of the great themes in mathematics over the last two
centuries is the strong relationship between arithmetic
and geometry. The study of this theme was initiated by
Abel and Galois in the early 19th century, and in this
century its further development has resulted in our
obtaining very precise information concerning sets of
integer or rational solutions to systems of equations.
The goal of this project is to explore another manifestation
of this theme, in the form of the so-called algebraic
K-theory of fields. Algebraic K-theory is a geometric
construction attached to arithmetic objects, called fields.
Fields are arithmetic objects in which one can add,
multiply, and divide. Algebraic K-theory attaches
geometric objects to these fields, and in such a way
that already well understood invariants of fields can
be extracted easily. Algebraic K-theory also contains
many less well understood invariants as well, and the
goal of understanding these invariants has been one
toward which topologists have been striving since the
early 1970's, when Quillen defined higher algebraic
K-theory. Two important conjectures have been
formulated concerning algebraic K-theory, the
Quillen-Lichtenbaum and Bloch-Kato conjectures.
They would relate the algebraic K-theory of a field
to properties of its "absolute Galois groups", an
object which incorporates all possible symmetries of
sets of solutions of sets of equations over the field
in question. This project aims to understand very
clearly how algebraic K-theory is built out of
information of this large group of symmetries,
and to use this understanding to approach the
two central conjectures mentioned above.